NER: Y-Junction Nanotube-based Computer Devices and Architectures

Proposal Number: 304284
Principal Investigators: R. Iris Bahar, Jie Chen, Joseph Mundy
Inst: Brown University
Proposal Title: NER: Y-Junction Nanotube-based Computer Devices and Architectures

This research focuses on exploratory research in nano-scale
computation. These new forms of computation will allow for more
efficient means of exploiting nano-scale electronics and devices than
those based on traditional silicon-based computation. In particular,
this research focuses on finding an effective means of dealing with
high defect rates found in nano-scale devices and developing an
architecture that is dynamically defect tolerant.

Three areas are being developed: (1) Device models are being defined
based on Y-junction carbon nanotubes (CNTs). This work may include
use of self-assembly capabilities to program interconnections of CNT
devices and build I/O interfaces. (2) A probabilistic-based design
methodology for nano-scale computer devices will be proposed based on
the Markov random network and brief propagation. This methodology
allows for an architecture that adapts to errors as a natural
consequence of probability maximization, thereby removing the need to
actually detect faults. (3) A new course in nano-computing will be
introduced in fall 2003. The course will offer a unique opportunity
to expose students to the wide range of disciplines that influence
nano-computing.